Support for the Division of Environmental Biology PopulationBiology (DEB/PB) Program (REF- CP0-92 16105 Task Order 101)

9528153 Friday Systems Service This contract is to provide support services for initial data-entry, panel send-out, and decline data-entry/jacket preparation of proposals submitted to the Population Biology (PB) program for its 15 June 1995 target date. The number of proposals is estimated to total about 150. Initial data-entry will include entry of data into the NSF mainframe computer, assembly of file jackets, mail-out of acknowledgment cards and attachments, and return of file jackets to the PB program. Panel send-out will include sending to panelists copies of appropriate proposals, review forms and other documents, based on an the assignment list provided by the PB program. Decline data-entry/jacket preparation will include retrieving file jackets from the PB program, entering decline data into the NSF computer, generating decline letters/labels, assembling decline jackets and PI-packages, and returning the file jackets to the program. *** ??